Transmetalation with New Elements (U.S.-Egypt Cooperative Science; Science in Developing Countries)

Technical Narrative: This U.S.-Egypt collaborative research project involving Northeastern University and Alexandria University is in the general area of polymetallic chemistry. This collaborative effort relates to the metal exchange of polynuclear materials. Project funding will enable Drs. Mohamed A. El-Sayad and Ahmed El-Toukhy from Alexandria University, Egypt, to spend approximately three months in the laboratory of Dr. Geoffrey Davies at Northeastern University. Dr. Davies will visit and work at Alexandria University for a three month period as well. The proposed new work will build on the past efforts of the investigators including the creation of larger and more diverse multi-metal molecules at lower cost, and the use of these molecules as sources of new metal alloys and chemical catalysts to be used in still newer systems. Development of the transmetalation phenomenon will lead to the establishment of new areas of study in organic and organometallic chemistry. This project in polymetallic chemistry fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Egypt to combine complementary talents and pool research resources in areas of strong mutual interest and competence.